Center for Excellence in Engineering and Diversity Scholarships (CEEDS)

The primary goal of this project is to address three transition points critical to increasing the number of CSEMS students qualified and prepared to enter the high technology workforce. These three transition points present barriers that impact the recruitment and retention of incoming freshmen, rising juniors, and community college transfers. The project plan strengthens existing efforts and renews collaborations among the Henry Samueli School of Engineering and Applied Science faculty, the Center for Excellence in Engineering and Diversity, industry, and alumni in an effort to effectively develop, graduate, and place CSEM students into career positions or graduate school. At the end of this multi- phased, four-year project the governance team expects to positively impact 80 economically disadvantaged and underrepresented engineering, computer science and mathematics students.

Along with new recruitment programs, the CSEMS Project team includes faculty in key retention and student support components and institutionalizes promising pilot programs. The UCLA CSEMS Project team includes four faculty members and the Director for the Center for Excellence in Engineering and Diversity.